CAREER: NLApack: Software for Numerical Algebraic Geometry

In this Career project, the investigator creates a software
platform (called NLApack) for Numerical Algebraic Geometry,
trains students in the development and application of
mathematical software, and broadens the graduate education of
students in the areas of mathematics, computational science, and
engineering. In a first stage, the algorithms for the numerical
irreducible decomposition of the solution set of a polynomial
system are refined and combined into a blackbox program. Besides
software, another outcome of this stage is the development of a
textbook for a course introducing students to symbolic and
scientific computing. The second stage of the project focuses on
three specific topics: pole placement, overconstrained linkages,
and multi-body dynamics. A result of this stage is a collection
of software tools specialized for those application fields, case
studies, and benchmarks. Throughout, students are trained in
mathematics and computing and in important applications areas.
The principal investigator, his collaborators, and his
graduate students are working in the areas of numerical analysis
and computer algebra. While computer algebra solves mathematical
problems in an exact symbolic fashion, as one would by hand,
numerical analysis calculates with limited precision on input
data often only approximately known. The software developed in
this project combines the symbolic and numeric approach. Most
scientists seek insight (not just numbers) in the form of
equations to reveal new relations between the important
parameters in their models. But these models contain approximate
data that cannot be handled directly by current symbolic methods.
The investigator develops symbolic-numeric methods that will
make computer algebra more relevant to scientific computing, and
trains students who will adept at both numeric and symbolic
computation, with significant payoffs for disciplines that depend
on large-scale scientific computing.